Scholarships to Attract and Retain Tomorrow's Scientists, Mathematicians, and Engineers

Twenty-Seven undergraduate and graduate students who are academically talented but financially disadvantaged are being selected for scholarships annually. The scholarship recipients are being drawn from a pool of applicants recruited from high schools, community colleges, four-year institutions and historically black institutions. Students majoring in the biological sciences, chemistry, computer science, engineering, mathematics and physics are eligible to apply.

The project is achieving its primary objectives of: 1) providing educational opportunities for academically talented, low income students in STEM subjects and retaining them through graduation; 2) increasing participation of underrepresented groups in STEM; 3) better preparing students for the workforce by enriching their educational experience through connections of academic content with the work environment; 4) increasing awareness of STEM employment opportunities through industry partnerships; 5) strengthening industry partnerships by creating linkages between students and potential employers; and, 6) encouraging scholarship recipients to pursue advanced degrees in STEM disciplines.